XPLR: MultiGigabit millimeter wave mesh networks: Cross-layer design and experimental validation

The large amount of unlicensed and semi-unlicensed bandwidth available for millimeter (mm) wave communication enable multi-Gigabit wireless networking that can potentially transform the telecommunications landscape.

Intellectual Merit: This research investigates the use of the unlicensed 60 GHz ``oxygen absorption'' band for providing a quickly deployable broadband infrastructure based on multi-Gigabit outdoor mesh networking. Millimeter wave links are inherently directional: the directionality is required to overcome the increased path loss at higher frequencies, and is feasible for nodes with compact form factors using antenna arrays realized as patterns of metal on circuit board. This project addresses the cross-layer design of mesh networks with such highly directional links, in which implicit coordination using carrier sense mechanisms cannot be relied on, and there is no omni-directional mode for explicit coordination. In addition, the research will investigate new design principles for directional medium access control, with the challenge being to coordinate nodes despite the deafness induced by directionality, while taking advantage of the drastically reduced spatial interference. The project will also study methods for network discovery and topology updates, the interactions between scheduling and routing; and the impact of oxygen absorption on network capacity and protocol design/performance.

Broader Impact: The principal investigators will develop publicly available mm wave network simulation tool, intended to engage a larger research community in this emerging field. The investigators will also explore other mechanisms for broader impact including technology transfer, undergraduate research, and curriculum updates featuring mm wave communication.